Conference on Oxytocin in Maternal, Sexual and Social Behaviors; May 20 - 22, 1991; Arlington, VA

Funds are provided to defray the travel costs for participants and young scientists to attend an international conference entitled "Oxytocin in Maternal, Sexual and Social Behavior" to be held in Arlington, VA on May 20-22, 1991. Oxytocin is a peptide hormone that is synthesized in cell bodies localized in the hypothalamus and transported to the posterior pituitary, from which it is released directly into the general circulation. This neuropeptide is critical for parturition, lactation and changes in plasma osmotic pressure. Recently, new functions, beside its classic role as a posterior pituitary hormone, has been proposed for oxytocin. The hypothalamic oxytocinergic system has been shown to undergo dramatic structural plasticity in response to normal physiological stimuli and to be directly involved in the regulation of maternal, sexual and social behaviors. This conference brings together internationally recognized scientists from diverse disciplines to exchange ideas and provide a comprehensive summary of the present state of knowledge in this exciting and important field. The format of this meeting provides the atmosphere to foster meaningful interchanges between an interdisciplinary group of scientists that include neuropharmacologist, neuroanatomists and psychobiologist. The outcome of these discussions have the potential to lead to a better understanding of the integration between structure and function of which oxytocinergic neurons are particularly suitable for analysis.